RUI: High-Precision Atomic Structure Measurements and Tests of Fundamental Physics

This experimental research program will continue a series of relatively small-scale experiments using lasers and atoms, which will address fundamental questions about physics of the electroweak interaction as well as other possible symmetry-violating interactions. Experiments will be undertaken in atomic systems of potential importance to electroweak tests such as lead. These experiments make use of diode laser systems and thallium samples in heated vapor cells as well as an atomic beam apparatus. In an extension of these measurements, the thallium atomic beam apparatus, high-voltage field plates, and existing laser system are being used to pursue a new experimental search for a possible time-reversal-violating (but parity conserving) long-range interaction. Proof-of-principle tests of this new experimental apparatus have demonstrated sufficient sensitivity to set important new limits on this class of potential symmetry-violating interactions. The broader impact of the program involves the commitment to a quality undergraduate research experience.